Materials Development for Middle/Junior High School Teachers

The program is designed as an eight-week session for 40 middle/junior high school (5th-9th grade) teachers. The basic purposes for the summer program are: 1.To develop curricular materials: Inquiry Role Approach laboratory activities and schoolyard science activities. 2.To improve the academic background of the teachers in three areas: life science, earth science, and physical science. The style of instruction will involve laboratory activities, discussions, lectures, and schoolyard field trips. The Inquiry Role Approach, a successful teaching strategy utilizing three-member laboratory teams, will be the major teaching strategy used for the physical and earth science areas. In the life sciences, emphasis will be placed on schoolyard field trips and the individualization of laboratory activities. Follow-up activities will include: a fall and spring meeting following the workshop to discuss results of training; in-service training events conducted by participants for science teachers in local schools. The college staff will visit each school to continue communications with middle school teachers.